Experimental Study of Effective Stresses in Wave-Structure- Sediment Systems

The objective of this research is to determine the effective stress response of a soil deposit beneath a gravity-type structure when subjected to water wave loading. The research will develop analytical models to estimate wave-induced sediment response and assess the stability of an offshore structure. A series of laboratory experiments will be performed to verify the predictive models. The stability of offshore structures and the bearing capacity of supporting seafloor are highly dependent on the cyclic loading effects of sea waves and associated dynamic response of soils. Recent advances in theoretical understanding of the dynamic response of offshore structures require verified data and validated models. This project has a good potential to make important contributions to uderstand the soil dynamics of offshore structures.